Computational Equipment for Approximation Theory, Control Theory, Graph Theory

NSF Proposal DMS-0215442
PIs: Hardin, Ellingham, Horn, Saff, and Schumaker

ABSTRACT

Computational Equipment for Approximation Theory, Control
Theory, and Graph Theory

The Department of Mathematics at Vanderbilt University will
purchase computer equipment dedicated to supporting research
in the mathematical sciences. The equipment will be used for
several research projects, as follows. Professor Ellingham
will investigate conjectures in graph theory involving
surface embeddings, traversability, and independent sets.
Professor Hardin will construct and develop applications
of local orthogonal bases. Professor Horn will investigate
the controllability of linked elastic structurres using
numerical methods. Professors Hardin and Saff will
investigate discrete minimum energy problems on the sphere.
Professors Saff and Schumaker will research the theory and
applications of splines, especially on the sphere.

Professor Ellingham's research involves graphs, which are
mathematical models of networks. Communication,
transportation and other networks are often modeled using
techniques from graph theory. Professor Hardin's research
involves wavelets, which are an important tool for
compressing images, sounds, and other real-world information.
They may be applied to problems in fitting equations to data
points in any area of science, or processing images, for
example from medical scanning equipment. Professor Horn's
research involves control theory, which allows computation
of how forces should be applied to a complicated system to
achieve a desired outcome. There are applications to many
real-world structures such as trusses, robot arms, solar
panels, and suspension bridges. The work by Professors
Hardin and Saff involves the best way to place points on
a sphere so that the sphere is covered as uniformly as
possible. This problem has applications in many fields,
including the structure of viruses, crystallography,
structure of molecules, and electrostatics. The research
by Professors Saff and Schumaker involves trying to provide
accurate but easily computable representations of quantities
on the surface of a sphere. For example, these technique may
be used to construct an accurate model of the Earth's
gravitational field.